Incorporating FT NMR into the Undergraduate Chemistry Curriculum.

Fourier-transform nuclear magnetic resonance (FT-NMR) spectroscopy is one of the most important analytical tools in chemistry. This project involves the integration of FT-NMR theory and laboratory experience into our chemistry curriculum via the conversion of a functional, but outdated, continuous-wave 60 MHz permanent magnet system to a pulsed FT spectrometer using a commercially available package from Anasazi Instruments. This upgrade enables our students to have hands-on experience with 13C, two-dimensional, or multinuclear FT-NMR techniques.

This approach adapts gains from the work Breton (NSF-DUE 9750684) in the implementation of this conversion to a FT-NMR system. Adapting this existing technology fulfills our curricular needs and is a practical and economical alternative to the purchase of an expensive superconducting NMR magnet. The upgraded instrument allows our students to (1) learn how to operate a modern FT-NMR spectrometer in their sophomore year, (2) efficiently obtain and interpret 1H-, 13C- and 31P-NMR spectra of products they synthesize in the laboratory, (3) perform advanced NMR experiments such as relaxation measurements, kinetics monitoring, spectral editing (DEPT), and two-dimensional NMR (COSY, HETCOR), and (4) perform remote processing of NMR data. Specific improvements in seven laboratory-based chemistry courses are ongoing, beginning with sophomore-level organic chemistry and continuing through senior-level advanced courses. This project is significant in its positive impact on our chemistry curriculum and its aid in preparing our students for graduate school and future careers.